Quantum Coherence in Superconducting and Normal Systems

9407245 The work proposed here will involve the study of conductance anomalies in point contact, superconducting island and superconducting to insulating transition in metallic films. The work related to point contacts is very closely tied to the experiments at Cornell. The work on superconducting islands focusses on understanding the even vs. odd number of electrons in superconducting rodes and is motivated by the experimental observation that the properties of these systems depend upon whether the number of electrons is odd or even. The proposed work will develop a microscopic theory of superconducting to insulating transition analogous to the Anderson theory of localization. %%% The proposed research is to provide a fundamental understanding of some unusual properties of point contacts and superconducting rodes and is motivated by experiments in these systems. The work will also focus on developing a microscopic theory of superconducting to insulating transition, which is one of the important unsolved problems in theoretical condensed matter physics.